Electro-Optics Laboratory in Undergraduate Physics

Jacksonville University will purchase a spectrum analyzer system, an optical spectrometer, a photopolarimeter, a fiber optics system, components for a Michelson interferometer, and a portable personal computer. This equipment will be used to improve instruction through the implementation of a new laboratory course in electro-optics for upper-division physics majors. A unique feature of this program will be the construction of some of the equipment for the course by advanced students as special projects. Jacksonville University will match the NSF grant with an equal amount of funds.